Travel to International Workshop on Hydra and Hydractinia Development, September 21-25, 1987, Gunzburg, West Germany

This proposal is a request for funds to defray travel cost for a number of investigators to attend the International Workshop on Hydra and Hydractinia Development. The Workshop will be held in Gunzburg, West Germany, September 21-25, 1987. Hydra is a significant model organism for studying pattern formation and cell determination. There are relatively few groups exploiting this organism and they are located in Europe, Asia and the United States. This international workshop will enable representatives of most of these groups to meet and exchange ideas.